Mapping a Cross-section Through Oceanic Lithosphere Exposed by Vertical Tectonics at the Vema Fracture Zone

9402347 Kastens This project will analyze, interpret and publish newly-collected data and samples from the southern transverse ridge of the Vema fracture zone in the central Atlantic Ocean. ***